Advanced Workstation Applications and Graphics Laboratory

The Advanced Workstation Applications and Graphics Laboratory includes a number of scientific workstations in a network with peripherals such as printers, plotters, a video recorder and associated software. The system is expandable and could include as many as 40 workstations. The laboratory network is connected to a campus network to extend access. The laboratory is expected to: 1) improve instruction in the sciences through detailed visual displays of molecular structures, simulations of complex systems, complex mathematical surfaces and functional relationships; 2) provide students with the tools for computer graphics and other applications requiring complex, high-speed computations such as CAD, map preparation from large data bases, and modeling of electronic andmolecular structures; 3) provide students with state-of-the-art instruction in computer graphics; 4) prepare high-quality, sophisticated courseware which requires high-resolution graphics. The grantee provides funds for this project that are an equal match for the NSF award.